U.S.-Venezuela Cooperative Research: Two Dimensional Josephson Junction Arrays

This U.S.-Venezuela award will support Professors Christopher Lobb of the University of Maryland and Richard Newrock of the University of Cincinnati in a research collaboration with Professor Miguel Octavio of the Instituto Venezolano de Investigaciones Cientificas (IVIC). The purpose of the research is to study various theoretical and experimental aspects of arrays of Josephson junctions. The investigators plan to perform computer simulations of two-dimensional arrays of Josephson junctions in order to understand the state and dynamic properties of such systems, as well as to explore the parameters that may affect their performance in potential applications. Junction arrays have interesting dynamic properties and have potential applicability to infrared wave detectors, mixers and parametric amplifiers, and as emitters of coherent radiation. Measurements and simulations will be emphasized in Maryland and Cincinnati, while the work in Venezuela will emphasize theory and simulations. *** //